PGE/PG: Planning for Project EFFECT II: Equation For Future Equity in Curriculum and Technology, Part II

Planning for Project EFFECT II will build a coalition of university faculty and administrators, American Indian Tribal leaders, and high school teachers and administrators with a common vision and long-term commitment to: increasing the number of women, Native Americans, and other underrepresented groups in SMET, and changing the climate in SMET. The process will culminate in the collaborative planning and writing of a Large Collaborative Project proposal in 2000.
In June 1997, Washington State University (WSU) was awarded a NSF Implementation and Development Project grant, Equation For Future Equity in Curriculum and Technology (Project EFFECT), through the Program for Women and Girls. Planning for EFFECT II is a concerted effort to expand the impact of Project EFFECT to the immediate region within Washington and Idaho. Expansion to other institutions and target populations requires a large collaborative effort between WSU, other postsecondary institutions, secondary institutions, and Native American Tribes. This Planning Grant provides the financial support to bring together representatives for two planning meetings.